Mathematical Sciences: Conference on Geometric Convexity, Integral and Stochastic Geometry; June 1-4, 1989, Corvallis,Oregon

This project will support the Conference on Geometric Convexity, Integral, and Stochastic Geometry to be held June 1-4, 1989 at Oregon State University. The conference will be organized by Professor William J. Firey. The major topics of the conference will be (1) stability questions in geometric convexity, (2) the development of statistical methods for spatial problems which have arisen from interactions among the areas of integral geometry, geometric probability, and statistics, and (3) integral geometry in the sense of Radon problems.